Experimental Determination of the Solubility of Na- and Ca- Silicate Assemblages and Na and Ca Speciation in Super- critical Chloride Solutions

The principal investigator will study the solubility of certain Na- and Ca-silicate minerals at elevated temperature and pressure. He will also investigate the solubility of wollastonite-quartz in NaCl-HCl solutions. This will yield thermodyanmic data necessary to model fluid-rock interaction during contact metamorphism and low to medium pressure regional metamorphism.